NMR Studies on Scorpion Neurotoxins

Scorpion venom is a complex mixture that contains a large number of small basic proteins which are responsible for the neurotoxic effects of the venom. A broad range of receptive excitable cells, e.g., synoptic neurons and muscle. are depolarized and in the case of nerve ending, depolarized with release of neurotansmitters. The venom from Centruoides sculpturatus Ewing (CsE) like that from other species of scorpions is unique in that the various toxins present in the venom can differ markedly in their toxicity to a given species, despite their closely related chemical properties and similar modes of action. These toxins offer an excellent opportunity to study structure-function relationships within a class of closely related proteins that display widely different toxin effects. Also, because of their varying activities on sodium current in excitable membranes, the can serve as excellent probes for studying the sodium channel. Dr. Krishna will use NMR spectroscopy to determine the solution structure of varies homologous toxins from CsE and compare them to the crystallographic conformation available. A diverse number of mutually complementay NMR techniques as well as distance geometry computational methods will be employed in the study. This project will ultimately provide the background information necessary to use the neurotoxins as structural probes of sodium channels.